Ecological Factors and Behavioral Mechanisms Underlying Selection

Abstract Sih 9514142 A blend of field surveys and experiments in semi-natural conditions will be used to examine the ecological determinants and selective consequences of mating behavior in a system with male-female sexual conflict. The focal system studied is a semi-aquatic insect, the stream water strider, Aquarius remigis. This species shows very clear male-female conflict: males continually attempt to mate with females, while females almost always resist male mating attempts. Previous experimental work showed that various biotic, ecological factors (predation risk, food availability, density, sex ratio) have major impacts on mating patterns (mating activity, mating frequency, mating duration, non-random mating by size) and that these effects depend largely on the influence of these factors on patterns of female resistance to male mating attempts (i.e., on female behavior in the male-female conflict). The proposed studies expand on current knowledge in three ways: 1. This study will move us significantly closer to a full understanding of how spatial and temporal variation in ecological conditions (both biotic and abiotic) influence both variation in mating dynamics and overall patterns of sexual selection. 2. This study will provide a rare instance of an experimental test of predictions on variation in sexual selection based on known behavioral mechanisms (in this case, male-female conflict) and the effects of ecological conditions on these behaviors. 3. Studies of selection in nature will provide a bridge between mechanistic experimental studies of behavior in semi- natural conditions and effects of these behavioral mechanisms in nature. In sum, 1) patterns of sexual selection (as quantified by modern statistical methods) will be explained mechanistically by using information on behaviors (male- female conflict) that underlie sexual selection, and 2) male and female behavior a(and thus patterns of sexual selection), in turn, will be understood as flexible responses to variation in both biotic and abiotic, ecological conditions. Overall, the integration of concepts and information from three exciting fields (male-female conflict, quantitative studies of sexual and natural selection, and ecology of mating systems) should add significant insights to our knowledge in all three fields and thus add to our general understanding of reproductive behavior.